Mathematical Sciences: Core Support for the Board on Mathematical Sciences

This project partially supports the core support for the work of the Board on Mathematical Sciences, Commission on Physical Sciences, Mathematics, and Applications of the National Research Council. The Board activities include the annual Department Chairs Colloquium for the mathematical sciences, the National Science and Technology Week Symposium, specific reports, the initiation of reports, and the continuous oversight of all activities. Other activities of the Board include providing recommendations on research directions and reports on education in the mathematical sciences, interaction of the mathematical sciences with other areas of science, the health of the mathematical sciences, and emerging research directions in the mathematical sciences. This award contains support from the National Science Foundation and the Air Force Office of Scientific Research. Other agencies supporting this project include the Army Research Office, the Office of Naval Research, the Department of Energy, and the National Security Agency.